Automatic Generation of Assembly Sequences

The trend towards automation in manufacturing is expanding fast. Machine interfaces, intelligent controls, CAD (computer aided design) packages and computer aided process planning are increasing. There is a greater demand for an automatic generation of assembly sequence to match and link these growing areas. Process planning requires the expertise of experienced process engineers. These engineers are gradually reaching retirement age and young engineers who have not yet gained the experience are bombarded by the demands of new technology. The automatic generation of assembly sequence involves (a) the extraction of constructive solid geometry and boundary representation, (b) determination of the type of each assembly step, (c) the type of tools required, (d) the size of each tool and its working envelope, and (e) check for collision, obstruction and clearance during assembly. Once the assembly steps are determined, a cost optimization approach can be used to generate possible assembly sequences. The engineer can then determine, according to his/her local assembly environment, an optimal assembly sequence. Heuris algorithms will be generated for these decision processes. The result is an expert support system which enables the fast transfer of 3-D CAD (computer aided design) parts and assembly data into a set of possible assembly sequences to facilitate the process engineer to speed up the implementation of automated assembly systems.